Enabling Faculty Development in Indiana Extending the Advantages of the Internet

9528281 Lindeman "Enabling Faculty Development in Indiana Extending the Advantages of the Internet" Indiana University requests support from NSF for two connections to the Internet through the INDnet regional network. One connection will serve Martin University in Indianapolis and the other connection will serve Ivy Tech College at Logansport. INDnet is a regional network located in the state of Indiana that will provide operations and network information services. It will provide Martin University and Ivy Tech College with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States. The institutions need the Internet connections to be able to access information resources throughout the state, the nation and the world. The connections will benefit the students, faculty and staff of Martin University and Ivy Tech College.